CAREER: M-ary Distributed Detection in Wireless Sensor Networks

This research focuses on integrating M-ary distributed detection and
communications, and makes a significant impact on the theory and
practice of wireless sensor networks (WSNs) and cognitive radio networks
(CRNs). In particular, the following four problems are tackled.

(1) M-ary distributed detection: The PI develops fusion rules and local
decision rules for M-ary distributed detection systems with different
wireless channel models, and studies how the erroneous channels
fundamentally limit the performance of these systems. Furthermore, two
composite M-ary distributed detection problems that have applications in
WSNs and CRNs are investigated: joint detection and localization of
multiple acoustic sources and spectrum sensing in a multi-channel
system. (2) Sequential methods for wireless distributed detection
systems: Striving to gain a profound understanding of the tradeoffs
between static and sequential distributed detection in wireless
networks, the PI designs two sequential distributed detection systems
with i) sequential tests only at the sensors and ii) sequential test
only at the fusion center, and studies how the detection reliability and
delay of static and sequential detection systems are affected by the
adopted wireless channel model. (3) Impact of imperfect channel state
information on the performance of wireless distributed detection
systems: The PI studies the effects of channel estimation errors on the
designs of static and sequential distributed detection systems and
investigates how these errors further limit the system detection
performance. (4) Cooperation in wireless distributed detection systems:
For both static and sequential distributed detection systems cooperative
schemes are developed, based on local information passing among
neighboring nodes, and conditions under which cooperation provides gain,
in terms of both detection reliability and delay, are explored and the
relationships between the cooperative gain and different channel models
are sought.